KDI: Computational Challenges in Cosmology

Silk
9872979
In the past decade cosmology has undergone a renaissance,
transforming from a data-starved science to a data-driven one.
The COBE satellite and subsequent observations of the Cosmic
Microwave Background (CMB) have begun to give us a detailed
picture of the early Universe; telescopes have found galaxies at
distances corresponding to the Universe at one-tenth of its
present age; large-scale redshift surveys have begun to map out
the structure of the nearby Universe. However, the size of these
datasets threatens to leave cosmology data-swamped. Realizing our
scientific goals depends on meeting the qualitatively new
computational challenges set by the quantitatively new data. The
issues cosmologists face in the analysis, synthesis and
presentation of the data --- including data compression and
transmission, mass storage, data mining, parallel algorithms and
scaling, inverse problems and regularization methods, and complex
data visualization --- are also at the forefront of current
research in Computer Science and Statistics. The investigators
and their colleagues form a focused collaboration between
astrophysicists, statisticians and computer scientists to develop
computational tools, techniques and technologies to cope with the
new challenges posed by these datasets. The needs of Cosmology
provide a practical spur to new developments in Computer Science
and Statistics, enabling and informing new research both within
astrophysics and more widely in other data-intensive disciplines.
Research is organized along four interlocking paths. First, there
must be appropriate tools to analyze the individual datasets.
Next are the synthesis and simulation of the datasets to
formulate a coherent picture of the evolution of structure in the
Universe. Finally, there must be access to the data and the
products of the analysis, both to members of the collaboration
and to the outside community.
Cosmology is the quest for the understanding of the Universe
on the largest scales, and of the events that unfolded in the
first moments after the Big Bang. Light that now makes up the
Cosmic Microwave Background (or CMB) last interacted with matter
in the Universe when it was about one hundred thousand years old
(a small fraction of its age today of fifteen billion years);
observing the CMB allows cosmologists to map out the Universe at
these very early times. Somewhat closer to home, observing the
distribution of galaxies lets us see the present state of the
Universe. Only ten years ago, the amount of data involved in
these studies was tiny. Advances in telescope and detector
technology has allowed a manyfold increase in these data; this
vast expansion pushes the limits of our computational ability to
analyze it. The investigators and their colleagues, from
astrophysics, computer science, and statistics, develop tools to
analyze and synthesize this vast amount of data. This allows them
to form a coherent and complete picture of the evolution of the
Universe from the earliest times to the present day and ---
perhaps most importantly --- far into the future.